CAREER: A Faunistic and Phylogeographic Survey of Beetle Diversity in the California Floristic Province Hotspot

ABSTRACT
Michael Caterino
DEB 0447694

This CAREERS project, based at the Santa Barbara Museum of Natural History,
will build a foundation for synthetic study of the rich beetle fauna of the
California Floristic Province. It will establish the PI as one of a very
small number of arthropod biodiversity specialists of this increasingly
imperiled region. Focusing on the southern Californian Transverse Ranges,
this project integrates field-based inventory work, DNA-based studies of
geographic variation, and a cutting edge bioinformatics platform to develop
a uniquely deep understanding of the area's biodiversity. The California
Floristic Province is an internationally recognized biodiversity hotspot,
yet its most diverse inhabitants, beetles and other arthropods, remain very
poorly known. This project will discover hundreds of undescribed beetle
species, will reveal the extent of genetic diversity across the region, and
will document the distributions of thousands of species in unprecedented
detail. The data developed through this study will have far-reaching
application. The region has long been recognized as an important natural
laboratory for studying evolution, providing important insights into the
process of speciation. But these studies have been taxonomically limited.
Expanding on this body of work through studies of regional beetles will
allow real generalizations to be made about these processes. Additionally,
despite their ecological significance, invertebrates have received little
consideration in land use management in the region, due principally to a
lack of applicable and accessible data. This project will produce this data
and an online system for accessing it.

Promoting knowledge and appreciation of insect biodiversity in the region is
one of the project's primary goals. Students at high school, undergraduate,
and postdoctoral levels will be directly involved in the research. They will
gain experience in field biology, modern molecular systematics techniques,
and bioinformatics methodology. All project personnel will share findings
through public presentations at the Museum, through professional
presentations at international conferences, and through an attractive,
user-friendly project web site. The web site will provide the primary portal
for direct access to project data. The underlying database will house
thousands of georeferenced specimen records, enabling GIS-based mapping and
distributional analyses. These data will also be accessible to automated
queries from remote servers assembling a global biodiversity data
architecture. For general users the web site will provide access to natural
history information and photographs of many species they may find in the
area. Special effort will be also made to make this information readily
useful by primary school students and educators.